A Three-Dimensional Holographic Hardcopy Printer

; R o o t E n t r y F .G C o m p O b j b W o r d D o c u m e n t O b j e c t P o o l .G .G ( ! " # $ % & ' ) * + , - . / 0 1 2 3 4 5 6 7 8 9 : ; < = > ? @ A B C D E F G H I J K L M F Microsoft Word 6.0 Document MSWordDoc Word.Document.6 ; e = e D D \ w y y y - = T E w w The goal of this research is to construct a working prototype holographic printer, employing an acousto-optic modulator, a 652 nm diode laser and a special silver halide holographic film whose sensitivity peaks at 652 nm. Phase I efforts have demonstrated technical feasibility in which a three-dimensional image is recorded as an array of dot holograms, each of which requires only an extrememly brief exposure. Because of this brief period (about 50 nanoseconds), none of the vibration equipment normally required for holography will be required. The technology should find applications in medical imaging, seismological imaging, architecture, CAD, and other fields in which three dimensional information must be visualized and is worth archiving or communicating in the form of a visible three-dimensional holographic image.. ; Oh +' 0 $ H l D h R:\WWUSER\TE MPLATE\NORMAL.DOT S u m m a r y I n f o r m a t i o n ( McGrew - Abstract Jolita Middleton Jolita Middleton @ ?a G @ @ ?a G @ Microsoft Word 6.0 2 ; D K u I B C D ! ! ! K @ Normal " A@ " Default Paragraph Font +@ Endnote Text c D D D K D Jolita Middleton.\\CLM18\IRISPROG\ISP\ACTIONSO.NG_\MCGREWAB.STR Jolita Middleton%\\CLM18\IRISPROG\ISP\ABS95\MCGREW.ABS Jolita Middleton"\\CLM18\IRISPUB\MICHELE\MCGREW.ASC @HP LaserJet III LPT2: hppcl5a HP LaserJet III 8D R HP LaserJet III 8D R \ Times New Roman Symbol & Arial Tms Rmn Times Times New Roman &" % % \ E McGrew - Abstract Jolita Middleton Jolita Middleton ; ;